CAREER: Capturing the Lessons of Internet Services: Recovery Oriented Computing

The dependability of critical systems is an increasing source of
concern. Modern software systems are routinely composed of millions of
lines of source, including "legacy" code from previous generations and
other vendors, yet critical Internet services and financial systems are
expected to exhibit "four nines" or "five nines" (99.99% or 99.999%)
availability. Vast prior evidence suggests that despite our best
efforts at achieving a correct design, complex systems can and will fail
in unpredictable ways, often resulting from unforeseen interactions
between well-tested components not designed to be used together. The
measured effects of such failures in the Internet arena are staggering,
and in mission-critical systems the costs could be measured in human
lives, as was nearly the case with bugs in the Patriot missile guidance
software used in the Gulf War.

Since unexpected failures do in fact occur even in the most careful
designs, this work proposes a new approach in which system design
focuses not only on fault avoidance, but on rapid recovery from
unexpected faults. In many cases, fault detection and recovery can
exploit relatively simple, well known techniques that have been proven
to work in keeping Internet systems highly available---despite their
very large scale, stressful workloads, and requirements of continuous
uptime in spite of high levels of software churn and integration of
legacy code. Software watchdogs and timeouts can catch unexpected
exceptional conditions; reactive or prophylactic process- or node-level
restarts can recover from or prevent transient errors resulting from
aging-related state corruption or unreclaimed resources; virtual machine
technology can effectively contain faults in complex software systems.
Although these mechanisms are simple, the challenge lies in determining
how software must be structured so that the mechanisms can be applied.
Similar techniques are well-known in the Internet protocol design
community and embedded-systems community, prior work from which has
inspired this approach.

Brown and Patterson have proposed the term "Recovery-Oriented Computing"
(ROC) to broadly describe the above philosophy. The primary goals of
the proposed work include the systematic investigation of ROC
engineering techniques to reduce MTTR (mean time to recovery) in complex
software systems, characterization of the properties of software systems
that make them amenable to ROC, and a set of design rules and
(re)structuring techniques for applying ROC to software systems.
Evaluation will include quantification of the trade-offs between
improvement in service availability and quality of service delivered to
users. Testbeds for the work include a ubiquitous computing environment
co-developed with the Stanford Interactivity Lab, and a prototype
COTS-based satellite ground station network co-developed jointly with
the Stanford Space Systems Development Lab.

The research is complemented by new course offerings and revision of
existing course offerings, at the graduate and undergraduate levels, to
refocus the software engineering curriculum on models closer to
industrial practice for building complex critical-infrastructure
systems. A new joint graduate course being co-taught with Prof. David
Patterson at UC Berkeley focuses on applying ROC to a variety of student
research projects across many domains. Proposed revisions to
advanced-undergraduate courses present Internet software systems
engineering as it is practiced in the field. In both cases, recognized
industrial researchers and practitioners are contributing both their
experience and concrete data that currently is nowhere published about
how complex systems really fail in the field.